Acquisition of stable isotope mass spectrometry system for biogeochemical research at the Large Lakes Observatory

0320880
Werne
This Major Research Instrumentation award to University of Minnesota Duluth provides funds for acquisition of an isotope-ratio mass spectrometer, a gas chromatograph and a headspace gas sampling device to be applied to a variety of research projects in environmental sciences, biology, geology and chemistry. It will be housed, together with existing ICP-MS and elemental analyzer instruments, in a newly renovated biogeochemistry facility. It will provide an important regional capability, presently lacking, for environmental research in the Great Lakes region, with a strong emphasis on lacustrine studies, both of the Great Lakes and elsewhere. The new instrumentation offers undergraduate and graduate students, as well as faculty and research staff, hands-on training in analytical techniques as well as access to research-grade instrumentation for research projects. This proposal is supported by the Division of Ocean Sciences at NSF.
***